Computer Science, Engineering, and Mathematics Scholarships

This project provides 20 scholarships to talented, low- income students pursuing associate degrees in computer science, computer information systems, engineering, or mathematics. Special consideration is given to women, ethnic & racial minorities and persons with disabilities. The implementation and management plan for this project is clear and effective, strengthened by its leadership and participation of faculty and staff from Women's Programs and Services for Students with Disabilities. This group has developed a unique plan for individualized support and thorough planning for each scholarship recipient, including the development of an Individualized Success Plan, a Faculty Mentor Program and opportunities for internships with local employers. Strong collaborations with private business and industry are an important component of the program.